Manufacturing and Characterizaiton of Embedded Sensors in Epoxy Laminates

The work involves the development of embedded thin film sensors in composites to detect strain changes associated with structural flaws. The sensors to be used are the shape memory alloy NiTi which has the capability of detecting strains near 8%.